Computer Laboratory in Human Experimental Psychology

The psychology department curricula are advanced by the establishment of a computer laboratory in human experimental psychology. A network of personal computers is used in teaching the research process and in the application of the research process in laboratory courses. The beneficiaries of the proposal are: (a) traditional psychology majors, who are required to participate in a three or four semester sequence of research courses, and (b) Human Factors and Psychobiology majors, who have special requirements in research. The proposal has direct impact on these students through the following courses: Research Methods, Experimental Psychology, Human Learning and Memory,Sensation and Perception, Physiological Psychology, Experimental Life-span Psychology, and Human Cognition. The award will be matched by an equal amount from the grantee.